Equipment to Enhance the Undergraduate Chemistry Program at a Community College

A gas chromatograph-mass spectrometer system(GC-MS), a Fourier transform-infrared spectrometer and two high performance liquid chromatographs are being acquired for the Science Resource Center to help strengthen the chemistry laboratory program. Acquisition of these instruments is enabling students enrolled in an associate in applied science in chemical technology degree program to have access to these instruments which are widely used in industry, allowing industrial technicians to upgrade their skills and allowing chemistry and other science and engineering students to use state-of-the-art equipment to develop laboratory skills, as well as reinforce the learning of chemical principles. High school advanced placement students, students preparing to be teachers and precollege science teachers are also benefitting by having access to the instruments. In the program, laboratory experiments are being emphasized, utilizing the requested instruments which bridge theoretical concepts with practical industrial applications. The grantee is matching the award from non-Federal sources.